Expansion and Maintenance of a Newly Formed I/UCRC Multi-University Center for Dielectric Studies

The multi-university Industry/University Cooperative Research Center for Dielectric Studies at Pennsylvania State University and the University of Missouri aims to broaden the scope of the Center to complementary technological areas, which will drive the center towards long-term sufficiency. The Centers mission is to play a leadership role in the development of next-generation electronic components through the creation of new materials, new processing methods, high frequency device modeling, measurements, interfacial characterization, and prototyping highly integrated devices. New research thrust areas in microwave metamaterials and electrolytic capacitors will be developed.